SHF: Small: Pattern-Aware Design

Current processors employ aggressive prediction mechanisms to improve
performance and reduce power. To design effective optimizations, it is
increasingly important to understand and quantify a program's dynamic
behavior. However, today, most of these optimizations rely on
heuristics and are fairly ad-hoc. After some patterns are observed, a
hardware decision is made and the design space of the hardware
optimization is explored through simulation to determine the best
performing configuration. However, because the design is targeted for
observed and/or anticipated patterns, some dynamic behavior is not
captured and remains undetected.

This project develops a framework for quantitatively analyzing a
program's behavior in terms of regularities and patterns to provide
insights into the design of next-generation hardware prediction
mechanisms. Inspired by DNA discovery tools, the research adopts
algorithms used in string processing, compression and bioinformatics,
in order to summarize applications' dynamic data reference and branch
outcome behaviors. The findings from the methods and tools developed
in this project will have a big impact on the design and efficiency of future
hardware components. The PI will collaborate with industry partners to further
increase the broader impact. The research will engage graduate and
undergraduate students and promote the participation of
underrepresented groups.